ARI-LA: A Framework for Developing Novel Detection Systems Focused on Interdicting Shielded HEU

0736202
Miller

The objective of this research is to demonstrate the ability to develop and deploy new detector concepts with fully integrated signal and information analysis to attain breakthrough improvements in the nation's ability to detect domestic nuclear threats. Three additional sub-objectives that will occur during the project are: (1) integration of social science/policy factors into the detection system parameter space, (2) enhancement of the education of undergraduate and graduate science and engineering students in areas related to nuclear security and border monitoring research, and (3) generation of self-sustaining research teams which will continue to expand fundamental knowledge in key nuclear detection fields.